Optimal Large Eddy Simulation of Turbulence

Abstract
CTS-0001435
R. D. Moser-University of Illinois Urbana-Champaign

Large Eddy Simulation (LES) represents an important bridge between basic turbulence research and computational efforts in engineering (CFD). The basic elements of LES are clearly in an evolutionary stage and the Optimal LES (OLES) of the UIUC research group is a most important component of the broad based effort to develop this methodology.

The present award will continue the development of OLES and permit it to be a strategy by which LES can contribute to our fundamental understandings of, as well as our ability to simulate, turbulent flows.